An Industry/University Cooperative Research Center for Advanced Electron Devices

An Industry/University Cooperative Research Center for Gallium Arsenide Advanced Electronic Devices is being initiated at the University of Texas-Arlington. The Center's reaearch program for the first year addresses: (1) the modelling of Gallium Arsenide FETS, (2) MESFET breakdown/power FETS, (3) SAGUFET - self-aligned gate undercut FET, (4) ohmic contacts, (5) semi-conductor/microstrip components, (6) YIG/MMIC oscillators, and (7) large-signal gallium arsendide power MESFET model.